The Forensic Science Project: "It's Analytical, My Dear Watson|"

Washington College will continue a three-week, residential Young Scholars project in Forensic Science for 20 students entering grades 11,12. Lecture sessions provide the theory of "wet" and instrumental chemical analytical methods and pose chemical and criminal puzzles. In the laboratory, student sleuths begin with fingerprinting and blood typing and end in use of the Washington College Chemistry Department's research-grade instrumentation to gather evidence for presentation at a mock trial.